Presidential Young Investigator Award: Simulation of Switching Filter and Phase-Lock Loop Circuits

White This research is on three topics in modeling, analysis, and simulation of high-frequency circuits and devices: 1. Multipole accelerated 3-D interconnect analysis; 2. Simulation of clocked analog circuits; and 3. Simulation for micro-electro-mechanical (MEM) devices. For the interconnect analysis, multipole-accelerated approach to circuit analysis is being applied to problems of determining effective and accurate methods to simulate cross-talk effects, and perform inductance extraction. In simulation of clocked analog circuits, algorithms for detailed simulation of switched-capacitor filters and switching power converters are being developed. Initial work in MEM device simulation explores simulating interactions between mechanical, electrostatic and fluidic forces, while simultaneously accounting for the behavior induced by the external circuitry. Algorithms for analyzing both static and transient behavior are being investigated.